Workshop on Cloud Robotics and Real-Time Big Data

This is a proposal for a workshop on the emerging new area, Cloud Robotics. The integration of
robots into the Cloud holds the promise of giving unprecedented computation and memory
resources to the robots. In parallel, robots can augment Cloud applications by giving them the
power to collect data on demand.

The workshop will bring together robotics, cloud computing and big-data researches to explore
the opportunities and challenges in Cloud Robotics.